Presidential Young Investigator Award: Processing of High-Temperature Structural Composites

This PYI Award is for fundamental research on the processing science of temperature/high performance composite materials based upon intermetallic alloy, ceramic and carbon matrices. One area of interest is novel processing techniques for the manufactoring of high temperature structural composites. Analytical processing models will be developed to study the complex interaction of processing variables and to predict the evolution of microstructure during processing. Advanced sensing techniques will monitor and control the processing variables which determine microstructure, properties, and the basis for developing intelligent processing methodologies. Control of processing parameters so as to control interface behavior is a key factor, and significant effort will be devoted to develop a micromechanical model to correlate the interface properties with composite behavior.